Engaging Indigenous Youth in Sustainability Science

The 2022 UArctic Assembly in Portland, Maine, offers the opportunity for Indigenous youth from New England and the Arctic to learn about sustainability science and build networks for future collaboration. This conference award supports participation of youth in activities focused on best practices for research partnerships, and sustainable development and climate adaptation strategies in Indigenous communities. Participants will have the opportunity to engage with UArctic leadership, Congressional representatives, and diplomats from Arctic nations.

Organized by the Wabanaki Youth in Science Program, the youth gathering engages Indigenous youth in learning, leadership, and collaborative activities related to sustainability science and the development of global partnerships. Participants will develop plans for a future youth sustainability conference and work on communication strategies to promote engagement. They will return to their home communities with international collaborative experience, a foundation in the principles of sustainability, and an expanded network of future Indigenous leaders.